A New Approach - Convexity Modelling - to an Old Research Topic Buckling of Viscoelastic and Nonlinear Elastic Structures with Uncertain Imperfections

Principal Investigator proposed to study the uncertainty in imperfections in viscoelastic plates, and their effects on buckling. The main objective is to investigate the feasibility of convex modeling - a new concept of uncertainty in imperfection sensitivity analysis. Comparison will be made against classical techniques of stochastic analysis. Both static and dynamic buckling are to be considered.